Testing a Model for Predicting Protein Stability

This expedited award for novel research project deals with the effects of single or multiple amino acid substitutions on the following properties of the proteins: (1) changes of enthalpy and specific heat of unfolding; (2) thermal stability; (3) resistance to chemical denaturants. These effects are correlated in terms of a transfer free energy density model in order to determine whether rational patterns emerge. To apply this model, the protein amino acid composition must be known and the protein must consist of a single reversibly unfolding domain. Most current efforts to explain and predict protein properties, such as stability, center on an extremely complex approach based on the protein's amino acid. In contrast, this approach applies chemical engineering phase equilibrium methods to predict the thermodynamic parameters of protein stabilization. This is a composition based approach, rather than a sequence approach; and it goes directly counter to most current biochemical thinking on protein property prediction. One of the key questions in biotechnology processes is the stability of the protein. Until now, there have been no quantitative tools for predicting protein stability. If this model is successful, it will provide a rational basis for site-directed mutagenesis to modify the thermal stability (and hence the protease resistance and in vivo turnover rates) of proteins. Such a predictive tool would also permit one to predict the temperature of maximum stability and thus to guide protein processing and refolding operations. This transfer free energy density model is the first such quantitative tool.